Kinetic and Catalytic Studies of Aromatic Iodination Reactions

This RPG in the Organic Dynamics Program to Professor Brazdil of John Carroll University will address the dynamics of aromatic iodination reactions. This is a new variation on the traditional methodology which is both more efficient and more environmentally friendly in that it generates less toxic waste. The mechanism for this new process is unknown and the PI plans to bring as many modern techniques as possible to bear on the problem of understanding the pathway. If successful, the methdology that the PI establishes may well be applicable to other electrophilic reactions. Electophilic substitution of iodine for hydrogen on an aromatic nucleus is an important step in the synthesis of organic compounds which are of interest and use in the medical field. Iodination is the preferred pathway as chlorination and bromination are more harsh which results in degradation of substrate. This study will help understand the reaction parameters which govern the efficiency of the process. Thus, this investigation should provide scientists with the knowledge to use the procedure more efficiently and in doing so, reduce the amount of toxic waste products.